RI: Decision-Making in Competitions with Hidden Information and Logic-Based Constraints

In real-world competitions, many important decisions must be made when one side knows something that others do not. For example, a public safety team may need to respond to a drone whose true goal is unknown, a cybersecurity team may need to defend a network without knowing an intruder’s intent, and a sports team may need to react before an opponent’s plan becomes clear. These situations are difficult because visible actions may be misleading, useful information may be revealed only over time, and some rules must always be followed, such as avoiding unsafe areas or reaching a goal before a deadline. This project studies how to make reliable decisions in such settings. The results may help future systems reason better under uncertainty, respond more safely, and support applications in robotics, autonomous systems, cybersecurity, defense, sports analytics, finance, and other critical sectors.

This project develops mathematical and computational foundations for decision-making with hidden information and logic-based requirements. It studies settings in which decisions evolve over time, one decision-maker has information that another does not, and acceptable behavior must satisfy requirements such as safety, reachability, or timing constraints. The main goal is to understand when stable optimal decision rules exist, what structure they have, and how that structure can make computation more efficient. The research activities include: (1) developing dynamic principles for decision-making with hidden information and logic-based requirements; (2) analyzing when the number of relevant future possibilities can be greatly reduced; and (3) creating sensitivity-guided computational methods that focus effort on the most critical decision moments. These advances are expected to reduce the cost of solving complex decision problems and enable more reliable planning and adaptation in fast-changing, uncertain environments.